Hierarchical and Distributed Compaction of Integrated Circuits

This proposal is for developing a VLSI CAD tool to do the process of compacting a wiring design into minimal chip area. The novelty in this tool is that it seeks to go beyond existing compaction tools and deal with designs that have millions of transistors, which is three orders of magnitude beyond current capabilities. The approach relies on the quasi-linearity of the compaction algorithms already developed. These topological approaches to compaction are being developed through parallel computing techniques and maintaining structural hierarchy. A coarse grain parallel implementation is being implemented in the C-Linda language, and it is being tested in distributed environments and on tightly coupled MIMD machines.